Hardware Ranch Observatory-A Mid-Latitude CEDAR Facility forStudies of the Middle and Upper Atmosphere Using Optical andRadio Techniques

This award is for the use of the Hardware Ranch Observatory (HRO). The facility will be used to test optical and radio instruments and to conduct observing campaigns. This facility will provide a unique opportunity for the NSF community at minimal cost. This award will almost exclusively be committed to operating the Observatory: installing instruments, coordination and making observations, reducing data, making data available to the CEDAR community, and conducting an active research program.